Advancing Structure-Property Relationships of N-Heterocyclic Carbene Adducts: A Tunable Framework for Catalysis and Energy Applications

In this project, Professor Jessica Lamb of the Department of Chemistry at the University of Minnesota is developing a novel class of organic molecules containing both positive and negative charges for applications in catalysis and energy storage devices. Compared to their metal-based analogs, organic molecules are made from more abundant elements, are relatively inexpensive, and can result in less hazardous waste. Unfortunately, current organic-based catalysts and energy storage materials are less efficient than metal-based systems. The goal of this research is to improve the efficiency of these organic compounds for such applications through a deep understanding of how changing the molecules’ structure impacts how they react. The project lies at the interface of organic, catalysis, and electrochemistry and is therefore well suited to provide rigorous, interdisciplinary training for the next-generation of scientific leaders.

N-Heterocyclic carbene-carbodiimides (NHC-CDIs) are highly-modular, zwitterionic betaine adducts that have been applied as ligands, mechanophores, (pre)catalysts, and redox-active organic materials. As catalysts, NHC-CDIs have been shown to react via three pathways: (1) adduct dissociation followed by classic NHC catalysis, (2) nucleophilic attack through the amidinate nitrogens, and (3) single-electron transfer to form an NHC-CDI radical cation. In this project, the structural features that dictate and/or enable the different reactivity pathways will be elucidated through systematic structure-property relationships. This fundamental understanding could lead to novel switchable catalysts, photoredox catalysts, and redox-flow batteries based on NHC-CDIs as well as latent asymmetric catalysts based on tunable NHC-borane adducts.